X-ray Studies of Spatial Coherence

Between the extremes of perfect crystallinity and the complete disorder of glasses, there are a number of interesting systems. A number of such materials have the common feature that the partial degree of spatial coherence is important in understanding the physical behavior which will be studied. It is intended to carry out a systematic study of the structure of the decagonal phase of metal alloys, in which there is apparently periodic order in one direction combined with some high degree of aperiodic order in perpendicular directions. Proposed experiments on the growth of order in alloys will test recent theories based on scaling. Experiments will be done to further characterize a new phase of solid oxygen. Finally, the melting of monolayer films of rare gases adsorbed onto the face of MgO crystals, in hope of obtaining an experimental system which is better suited than graphite for comparison to recent theories will be studied. All of these systems will be studied by high resolution x-ray diffraction, both at Stony Brook and at the National Synchrotron Light Source.